A Quasi-Nondestructive Method for Residual Stress Evaluation

9503621 Li This Research Planning Grant is made in order to develop a quasi- nondestructive method for residual stress evaluation. The technique is based on measuring changes in the separation distances between three closely placed microindentations on the surface of an object. This method can be used in hostile environments and at elevated temperatures. ***